Tenth International Conference on Luminescence and Electron-Spin-Resonance Dating; Reno, Nevada; June 24-28, 2002

This award will support an international workshop entitled "10th International Conference on Luminescence and Electron-Spin-Resonance Dating." The conference will examine the utility of trapped-electron dating (TED) for establishing the age of geologic and archaeological materials.

The purpose of the conference is to bring together international experts, practitioners, and students to share the latest developments in this dating technique. NSF support for this conference will enable the University of Nevada Desert Research Institute to serve as the first host of this conference in the Western Hemisphere. This is important because TED is gaining use among American scientists as a dating technique. Having experts from Europe gather in the United States is a cost-effective way for American researchers to gain first-hand knowledge of the technique.